RUI:Drosophila F Element Expansion: A Window on the C-value Paradox.

This research award funds an investigation of the evolutionary causes and consequences of genome size variation. The DNA of all organisms contains the genes that code for proteins, the building blocks of cells. Humans have approximately five times as many protein-coding genes as do bacteria, but about 1000 times the amount of DNA. This phenomenon, the C-value Paradox, will be studied using a chromosome (the F element) that has undergone a rapid change in size during the evolution of the fruit fly, Drosophila. Initial analysis of the F element genes in four species with an expanded F is being done by undergraduates in the Genomics Education Partnership (GEP). The GEP involves >150 faculty from across the United States who are using this project to introduce students to research in genomics, focusing on gene annotation. One of the most diverse universities in the nation, New Jersey City University, is the hub for this national research project.

An F element region containing ~80 genes is 1.3 megabases in Drosophila melanogaster, but 19.1 megabases in Drosophila ananassae, a 15-fold increase in size. Expansion of the F element is largely due to a higher repeat load, dominated by transposable elements (TEs). Using a comparative species approach to analyze the expansions within and between genes, the project will document the rate and timing of TE acquisition, and characterize the impacts of TEs on gene structure and on chromosome organization. Examining SNPs from 15 strains of D. ananassae will illuminate whether change in genome size is associated with change in effective population size. The mechanisms that limit recombination will be examined using both codon bias and substitution rates. These studies and others enabled by the GEP student annotations will contribute to a better understanding of the nature of the genome that can be broadly applied to eukaryotic biology.

This research is funded by the Genetic Mechanisms program in the Division of Molecular and Cellular Biosciences in the Directorate of Biological Sciences.